Single Crystal X-ray Diffractometer System

Single crystal x-ray crystallography coupled with a computer system is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organoetallic chemistry, single x-ray diffraction is an invaluable tool for characterizing molecular structure. The information gained from the knowledge of the molecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis. This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Texas Christian University acquire a complete single crystal x-ray diffractometer system with a computer. Among the areas of chemical research that will be enhanced by the acquisition are the following: 1. Organosulfur Compounds: Synthetic Metals, Complexes, and Metal Complex Hosts Systems 2. Calixarenes as Enzyme Mimics 3. Mechanism, Scope, Limitations, and Applications of Phenol-Formaldehyde Reactions 4. New Inorganic Polymer Systems 5. Synthesis and Characterization of New Polyphoshazenes 6. Biomimetic Catalysts 7. Quantum-Confined Semiconductor Microelectrodes: Surface Structure and Reactivity